CEDAR: Coordinated Imaging and Incoherent Scatter Radar for Ionospheric Research

The PIs propose to operate the CEDAR Class-I Imaging System compiling a multi-wavelength database containing sub-auroral phenomena. Topics the PIs will study include: (1) investigation of the under-reported and poorly understood temporal/spatial variabilities in Stabel Auroral Red arcs, (2) study of ionospheric storms and field-aligned current signatures upon the sub-auroral ionosphere, and (3) continuing development of a prototype imaging spectrograph for use with a bare CCD detector.